SBIR Phase I: Terrabyte Economical Database Server

0340469

This Small Business Innovation Research Phase I project is a feasibility study of developing a terabyte size database server using advanced software technology developed for supercomputer cluster and scientific computation. With today.s rapid proliferation of information, organizations are facing the challenge of storing and managing the ever-growing company.s data. Today.s infrastructure solutions are complex and expensive. Besides an economical enterprise class database server, other potential applications are for any information intensive job such as data warehousing and data mining. The innovation will enhance scientific understanding by providing a powerful but affordable computing and data storage platform to conduct research in the areas such as bioinformatic, data mining and text mining. It provides a scientific research tool for small research institutes and educational institutes. The innovation will enhance technological understanding since this is the very first project to study data management and storage using openMosix Linux, PVFS2 and MySQL. The software technologies developed will be freely distributed as Open Source code. Other developers are expected to follow Open Solutions initiative to further develop the technology.